Data Distribution Independent Parallel Processing

This project is exploring the possibility of a parallel programming paradigm that is data-distribution independent (DDI) in the sense that the user would not be required to program or even invoke data communication routines (hereon called modules). The need for data redistribution would either be eliminated or transparent to the user. The emphasis this work is on the systematic design of computational modules so that either there is no need to redistribute input data or, when this cannot be achieved, the cost of (automatic) redistributionis minimized. In this context, source-to-source program transformations, called modular mappings, and properties that allow commutative parallel processing are being explored as techniques and concepts that enable DDI computation. The extent to which a DDI paradigm could replace existing approaches, complement them or merely apply to special application domains is unclear and this is one of the issues under investigation. In addition, hardware and architecture features that support DDI computation on both general and special purpose aprallel processors are being investigated. The experimental validation is being done in the context of three application areas and program implementations on a fine-grain distributed memory SIMD machine (Maspar MP-1 with 16 thousand processors) and a coarse- grain distributed memory MIMD machine (Intel Paragon with 140 processors). The areas of interest are dense linear algebra, sparse linear algebra and symbolic compute algebra which can be applied to numerous scientific and engineering computing problems. For these three areas, DDI modules are being developed as well as entire programs built of several modules. Performance comparisons are being made between DDI implementation and their non-DDI counterparts.